CRLT: Teacher-Researcher Collaboration in Scientific Modeling: The High School Science Virtual Machine Laboratory

9616565 Stanley, Eugene Boston University CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: Teacher Researcher Collaboration in Scientific Modeling: The High School Science Virtual Machine Laboratory Boston University has been awarded $858,545 to establish over 3 years an approach to high school science education by allowing students to model and visualize physical, chemical and biological phenomena of increasing complexity. The project will take advantage of two advances in technology: One is the emergence of JAVA, a platform independent language that enables transmission of applications over the WEB to run locally on any platform. The other is the existence of public domain versions of distributed parallel computing operating systems. One such system, PVM, will be used and modified to enable students to use many computers in a school as a larger parallel computer. The tools and applications will be used by the researchers and teams of high school teachers to develop education-oriented modeling programs that do not sacrifice needed functionality or sophistication.